Development of a Federal Cyber Force at Syracuse University - Scholarship Track

Through this project Syracuse University (SU) is continuing its Scholarship for Service program. SU has participated in the SFS program since 2003 and, by early 2006, had provided 27 scholarships to undergraduate and graduate students. This project is supporting 10 new Scholars and extending SU's existing relationships with government, military, and intelligence agencies. These relations include collaborations on Information Assurance (IA) related research projects, the development and use of new IA technologies, recommendations on IA policy, and input from agencies on how SU can continually improve its IA offerings.